Helical Symmetric Flows with Swirl

9310181 Rusak Theoretical research is to be carried out of the vortex breakdown phenomenon with an approach utilizing helical symmetry. With the governing equations based on a helical coordinate system, various asymptotic and numerical solutions will be obtained bearing on: standing helical waves, developing stagnation regions, failure of boundary layer approximations, and conical flows with helical symmetry. New criteria for the onset of breakdown in swirling flows are to be developed from such solutions. Vortex breakdown occurs on aircraft and in internal flows with swirl, such as for example combustion systems in boilers. Its mechanisms are as yet only incompletely understood. ***